Regularization Methods: new theory, analysis and applications

Regularization methods are numerical techniques based on exact
solutions of partial differential equations that are derived in the same
way as fundamental solutions when the Dirac delta is replaced by a
smooth approximation, such as a Gaussian. The vortex blob method is
an example. The resulting solutions of the PDEs are bounded approximations
to the fundamental solutions. This project advances the theory, the
computational implementation and the application of these methods
to problems of Stokes flows. Regularized high-order elements, such as
doublets and quadrupoles, are systematically derived, the required
properties of blobs are proposed and families of blobs with such properties
are developed. The regularized fluid velocity expression forms the basis
of new numerical methods, whose convergence and efficiency properties are
analyzed. Performance-based guidelines for choosing the numerical parameters
are provided. Finally, several applications of the methods include the
dynamics of microorganism populations and the large-scale flow patterns they
generate, the motion of cilia as they beat to generate an organized net flow,
flows across permeable walls, and more.

The investigator develops mathematical tools necessary to design new reliable
ways to generate computer simulations of biological phenomena involving
microorganisms in a liquid environment. These include the motion of bacteria
in the human body, the synchronized motion of cilia in the lungs, the transport
and filtration of chemicals transported by blood, and other biologically
important situations. The computer simulation of these phenomena complement
experimental studies done in medical laboratories and are extremely useful,
particularly for understanding the behavior of the human body under circumstances
that cannot be tested in vivo. Often, computer simulations can detect responses
that occur when parameters are outside the range typically used in the laboratory,
and thus point to new experiments that should be pursued. The methods developed
in this work increase our understanding of how E. coli may move around the body
or how defects in the lung cilia can translate into decreased functionality and
possibly disease.